Group Travel Support to the Sixth Marcel Grossman Meeting onRecent Advances in General Relativity; Kyoto, Japan; June 23-29, 1991

The Sixth Marcel Grossman Meeting on Recent Advances in General Relativity will be held in Kyoto, Japan, June 23-29, 1991. These meetings are devoted to reviewing recent advances in gravitational and general relativity with emphasis on their mathematical foundations and physical predictions. This award will supply travel funds to support the participation of approximately twenty U.S. scientists in this international meeting.